QoIA-Aware Attack Resilient Database Systems

This project will build a QoIA-aware attack resistant database
system framework, call Linba. The trustworthiness of a computing
system in delivering valid services in face of attacks has
become a more critical concern than ever as people are experiencing
increased cyber security threats. A Quality of Information
Assurance (QoIA) service is a service associated with a specific level
of trustworthiness. From the viewpoint of end users, the goal of trusted
computing is to enable people to get the QoIA services that they
have subscribed for even in face of attacks. However, (most) existing
trusted systems cannot deliver QoIA services since they have very limited
ability in providing (sustained) quantitative trustworthiness guarantees.

The objective of this research is to build a new trusted computing
infrastructure that is able to continue delivering QoIA services
in face of attacks and cost constraints. Based on a novel formal
(service) trustworthiness model, Linba
delivers multilevel, differential, quantitative QoIA services
through near optimal neuro-fuzzy composite QoIA adaptations where
Linba intelligently adapts itself to environment changes and
QoIA-cost tradeoffs are done in an optimized way. Successful
development of Linba will arm existing trusted database systems
with the ability to deliver QoIA services (in a cost-effective
way) and provide very valuable hints on developing a variety of other
types of trusted computing systems that can deliver QoIA services.
The cost-effectiveness of Linba will be evaluated through
simulation or prototyping.